International Council for Exploration of the Sea: Travel Support for Academic Participants, 2019-2022

The International Council for Exploration of the Sea (ICES) was founded in 1902. It is a prominent intergovernmental organization that conducts science and provides management advice on marine resources in the North Atlantic and neighboring seas. The United States has been a member of ICES since 1912. The US role in ICES has become more important as global concerns related to overfishing, effects of climate change, loss of biodiversity, ocean acidification, harmful algal blooms, and effects of aquaculture on ecosystems have become international in scale and requiring coordinated research programs. Annual Science Conference, its Working Groups and Workshops, Symposia, Theme Sessions, and Training Programs. Applications by young and established scientists will be considered to assure strong representation by the U.S. academic community in ICES activities.

Support is provided for U.S. academic scientists to participate ICES activities. ICES is the leading intergovernmental organization conducting and coordinating marine science in the North Atlantic region. ICES is a network of more than 5,000 scientists from over 700 marine institutes in 20-member countries. Its mission is to advance and share scientific understanding of marine ecosystems and the services they provide and to use this knowledge to generate state-of-the-art advice for meeting conservation, management, and sustainability goals. Their work focuses on the North Atlantic, but also includes the Arctic, Mediterranean Sea and the Black Sea. The participation of U.S. academic scientists in ICES activities will advance our ability to develop and harness new techniques and technologies for observing marine ecosystems; and advance our understanding of their structure, function, and dynamics.